X-Ray Diffraction in Geology and Chemistry

9451509 Jones The Departments of Geology and Chemistry propose to introduce modern methods of X-ray diffraction into undergraduate laboratory courses, and to increase the use of diffractometry in student research. In order to accomplish these goals, funds are sought to upgrade and computer-interface an X-ray diffractometer. Hands-on use of the diffractometer will be introduced in the Geology curriculum with the Mineralogy course. In Lithology, Sedimentology, Geomorphology, and Glacial Geology, students will use the diffractometer to solve specific problems. X-ray Mineralogy students will learn to operate the equipment independently and use the full range of software to solve a variety of problems. In the Chemistry curriculum, hands-on use of the diffractometer will be introduced in Physical Chemistry. In Instrumental Analysis, students will conduct experiments designed to illustrate how X-ray diffraction is used for quality control. Inorganic Chemistry students will make extensive use of diffractometry in order to characterize solid state compounds. Geology and chemistry students will be able to do independent research projects that previously would have been impossible. The project will have significant impact because about 220 students per year (compared to about 25 at present) will be introduced to computer-interfaced X-ray diffractometry and its many practical uses.